Characterizing Metazoa of the Neoproterozoic by Investigating the Taphonomy and Phylogeny of Modern Animals

9814845
Valentine
This research will address three aspects of problems related to the early history of animals: the nature of Neoproterozoic trace fossils and their makers; the taphonomy of modern traces and soft-bodied animals; and the phylogeny of basal metazoan clades. It will continue comparative studies of Neoproterozoic and modern trace-making organisms, comparative observations of body fossils and modern taphonomy of diploblastic metazoans, and the molecular phylogenetic analysis of the early branching metazoan groups. Although many investigators have assumed that Neoproterozoic trace fossils were made by bilaterian animals, pre-bilaterian diploblastic animals can make similar kinds of traces. Likewise, many modern cnidarians, although unskeletonized, have rigid and/or dense bodies that will form the basis for experimental taphonomic comparisons to some Neoproterozoic body fossils. Molecular sequencing of basal metazoans suggests that bilaterians are the sister group to placozoans, and that cnidarians are sister to these two groups combined. The work outlined in this proposal will test these hypotheses and develop appropriate new ones.